CMG Research: Emerging Mathematical Strategies for Stochastic Modeling and Predictability to Climate Variability

The climate system involves a huge range of interacting spatial and
temporal scales. Development of tools to further understanding of this
very complex system and its predictability is the major focus of this
project. Theoretically rigorous methods allowing for the stochastic
modeling of the system have been demonstrated by the investigators in
simple dynamical systems. We extend these to the more complex but
practical systems underlying climate. Additionally an entirely new
perspective on dynamical predictability has been derived by the
investigators using information theory. This will be applied to the
problems of atmospheric and climate prediction and will also enable the
development of rigorous reliability measures for dynamical predictions
in general chaotic systems.

These investigations enable us to gain a much clearer understanding
of the complex system underlying the Earth's climate. Such an
understanding will be of great benefit in interpreting results from
societally important projections of future climate change. Further we
anticipate the development of tools which will enable us to reliably
decide when a particular prediction (climate or weather) is likely to be
useful and when it is not likely to have any use. This ability has important
practical implications for policy makers dealing with fundamentally
uncertain systems.